Belmont Forum Collaborative Research Food-Water-Energy Nexus: CITYFOOD

Many cities across the globe are facing difficult challenges managing their food, water and energy systems. The challenges stem from the fact that the issues of food, water and energy are often tightly connected with each other, not only locally but also globally. This is known as the Food-Water-Energy (FWE) nexus. An effective solution to a local water problem may cause new local problems with food or energy, or cause new water problems at the global level. On a local scale, it is difficult to anticipate whether solutions to one issue in the nexus are sustainable across food, water and energy systems, both at the local and the global scale. Innovative solutions that encompass the nexus are particularly important to enable cities to better manage their food, water and energy systems and understand the benefits and tradeoffs for different solutions.

This award supports U.S. researchers participating in a project competitively selected by a 29-country initiative through the joint Belmont Forum- Joint Programming Initiative (JPI) Urban Europe. The Sustainable Urbanization Global Initiative (SUGI)/Food-Water-Energy Nexus is a multilateral initiative designed to support research projects that bring together the fragmented research and expertise across the globe to find innovative solutions to the Food-Water-Energy Nexus challenge. The call seeks to develop more resilient, applied urban solutions to benefit a much wider range of stakeholders. The rapid urbanization of the world's population underscores the importance of this focus. International partners were invited to develop solutions for this challenge. The funds requested will be used to support U.S. participants to cooperate in consortia that consist of partners from at least three of the participating countries and that bring together natural scientists, social scientists and research users (e.g., civil society, NGOs, and industry). Participants from other countries are funded through their national funding organizations.

The project aims to deal with the challenges related to rapid urbanization of the world's population by developing and providing a new concept of integrated aqua-agriculture systems to support a broader scale urban food production. The project focuses on intersections and potential synergies between different domains, such as urban governance, planning, and management, socio-economic development and resource flow related to food/ nutrients, water, and energy and seeks to integrate aqua-agriculture systems into cities and expand the knowledge and applicability of this innovative solution. Computer models will help to optimize the environmental, economic, and social benefits of the aqua-agriculture technology. Real-world experiments in Living Labs will synthesize all three FWE sectors and illustrate the integrated system for multiple stakeholders. Urban planning approaches and sample case studies will help to develop comprehensive implementation strategies in a variety of urban contexts.